Few-Level Models in Atomic Radiation Theory (Physics)

It is proposed to extend the use of few-level models in cavity quantum electrodynamics to off-resonant and zero-photon atomic processes. In these situations the usual free space QED assumptions (i.e. broad band vacuum reservoir) may be invalid. The objective here is to consider alternative interactions that can probe very short response times. One such fundamental class of radiative interactions is the Raman class. These are not well modelled by only two atomic levels and three level models may be necessary unless an adiabatic approximation can be justified in connection with the intermediate state. Points to be considered include: (a) significance of the short time scale implied by the large detuning of the intermediate state, (b) whether adiabatic elimination can be justified, (c) utility of photon-atom dressed states, (d) effects of non-classical field states, and (e) effects of correlations on Stokes and anti-Stokes waves.